A Non-Invasive Investigation of the Structural Changes in Contaminated Soils Over Time

***
9813226
Boadu
This research explores the possibility of assessing non-invasively, the
evolution of the structural changes in contaminated soils of different
composition. The hypothesis is that structural changes result from changes
in the size of inter-particle spacing, and compositional changes result
from ionic or solution replacement in the spacing. These changes result in
modification of hydraulic conductivity and porosity. Knowledge about such
changes in contaminated soils is important and needs to be assessed
non-invasively if proper measures are to be taken to implement storage or
remediation of contaminants.

The investigation will involve laboratory measurements of the spectral
electrical response of contaminated soils integrated with theoretical and
equivalent circuit models of the soil-contaminant system. Studies of the
electrical properties will provide information on the pore geometry and
pore surface area as both transport of free charge carriers in the pore
space and polarization at the pore-grain interfaces contribute to the total
conductivity. The experimental study involves soil-contaminant mixtures of
varying ratios of clay, silt and sand, mixed with pore fluids that will
include organic and inorganic chemicals (acids and bases) and petroleum
products (e.g., kerosene). Soil mixtures will be allowed to interact over
time and the frequency-dependent electrical response will be measured. An
inversion method using a nonlinear optimization scheme, simulated
annealing, will be employed to retrieve the electrical and physico-chemical
parameters of the soil system over time.
***